Mathematical Sciences: Continuum Models of Phase Transitions, Fronts and Interfaces; Salt Lake City, Utah, January 25-27, 1990

This award will support a conference on Continuum Models of Phase Transitions, Fronts, and Interfaces. The conference will be held on January 25-27, 1990 in Salt Lake City, Utah at the University Park Hotel. The purpose is to bring together researchers in various areas of mathematical, physical, and biological sciences to discuss work on continuum models that arise in studies of phase transitions and the motion of fronts and interfaces in reacting and non-reacting systems. Ten principal speakers will give lectures and other participants will present posters. Principal speakers include D. Aronson, A. DeGregoria, P. Fife, M. Glickman, C. Jones, A. Libchaber, J. Strain , P. Sternberg, B. Taccardi, and D. Terman.